Conference: Phosphoinositide Sources of Second Messengers inPlant Growth and Development on April 14-16, 1988 in West Lafayette, Indiana

Support is requested for a research conference to be held in the spring of 1988 on the subject of phosphoinositides as sources of second messengers in plant growth and development. The area of second messengers currently is one of the rapid growth areas in plant biology. This is especially so for research involving the polyphosphoinositides where a role as a major second messenger system in animal cells has emerged during the last decade. Our goal is to bring a select group of experts in the area of plant second messengers together with those whose work has focused on inositol metabolism to discuss critically the second messenger concept in plants and the possibility that inositol phosphates together with protein kinases and calcium fulfill such a role in hormone responses. While polyphosphoinositides have quite clearly been shown to occur in plants and to be modulated under certain developmental conditions, a second messenger role remains to be proven for these substances in plants, and the field is certainly very much in need of critical evaluation. This conference will be designed to foster interaction among participants with a view toward the emergence of new paradigms for the understanding of the mechanisms of second messenger signalling in plants, and the role of second messengers in plant growth and development.